STTR Phase I: Performance Optimization Toolbox for Wave Energy Conversion Devices

This Small Business Technology Transfer Phase I project is titled “Performance Optimization Toolbox for Wave Energy Conversion Devices”. Advanced wave prediction and concurrent online adjustment of the operating parameters (such as hydraulic system pressure and generator load) of existing wave energy conversion (WEC) devices have the potential to increase their power extraction efficiency by at least 200% over presently used approaches. However, application of such advanced control-theories have not been implemented by industry Todate. This is largely due to two major issues: (1) the difficulty of predicting the waves encountered by a WEC system 20-40 seconds in advance, which is required to effectively implement online tuning strategies, and (2) the challenges associated with optimizing the control system, given various nonlinear system behaviors and constraints. The research objectives of this project are to resolve the key issues in this multi-disciplinary problem and develop a toolbox that allows WEC device developers to optimize their device performance and therefore enable transformative improvements in WEC device performance and their economic viability. During phase I, a software suite will be developed and tested, leveraging advanced simulation, estimation, and control tools, which will enable remarkable performance improvements for existing WEC devices.

The broader impact/commercial potential of this project will be to enable an effective cost-reduction pathway for wave energy. According to a recent study released by the US Department of Energy, wave power could provide up to 630TWh/year in the US alone, which corresponds to 15% of the US electrical demand in 2011. At the current market rate of 8 cents/kWh, this represents a market opportunity of $50 billion per year and would add more than 150,000 jobs to the US economy. Unfortunately, current WEC methods need to attain a significant level of cost reduction and/or performance improvement to compete with other power generation methods. Advanced controls and rapid tuning will enable a cost-reduction pathway that will allow wave energy to become competitive with other power generation methods. The ability to accurately predict wave fields (and, in certain cases, to use advanced control theory to take corrective actions to minimize loads and improve performance and/or operational safety) has numerous applications in other areas, including tsunami prediction, maritime operations, and offshore oil & gas. Though these applications will not be explored in the present effort, the foundation laid with the present research could easily be extended to these related fields.